Frictions, Flows, and Fees

This project investigates the role of fund flows and fees in portfolio
choice and asset pricing. The main focus is on (i) understanding how
these aspects fit in the existing theory, (ii) developing theoretical
tools that make them tractable, and (iii) evaluating the departures from
classical results due to flows and fees. Central issues are the
extension of duality theory, and the development of asymptotic
techniques in the long-horizon and small-fees limits.

This research aims to incorporate fund flows and fees - two central
aspects of financial intermediation - in mathematical models of
financial markets, to understand their agency effects on asset
allocation, and their implications for welfare and pricing. This project
will help understand the role of financial intermediaries, the
incentives created by their fee-based contracts, and their interaction
with investors' response through flows, that is subscriptions and
redemptions.